Demystifying Genomics - Opening Doors

HRD 03-42901
Dr. Margaret Werner-Washburne is a faculty member in the Biology Department at University of New Mexico for fifteen years. During this time, she has mentored a large number of students, including two Hispanic/Latino post-doctoral fellows, two Hispanic/Latino doctoral degree recipients, two Hispanic/Latino master's degree recipients, and 45 undergraduate students (33 were ethnic minority). Her efforts include public dissemination of science at the community, such as the PBS video series, "The Mystery of an Ancient Gene" (NSF supported). In addition to working with students and faculty from many different cultural and ethnic backgrounds, she works effectively with groups from K-12 to university and government professionals, and across disciplines including biology, mathematics, computer sciences, and mechanical and chemical engineering.